Professional Development of Logo Teachers Through Classroom Research Seminars

This three-year project seeks to develop and test materials that will enable upper elementary and middle school teachers to carry out research activities concerning students' use of Logo. The goal is to develop and assess a professional development model that will assist teachers in becoming more knowledgeable, reflective, and diagnostic in their use of Logo, so that the potential of Logo to promote students' mathematical development will be more fully realized. The project consists of two cycles. In the first, ten teachers from the Boston area will participate in an academic-year seminar involving research on their own students' use of Logo. During the second cycle, six teachers will be trained as seminar leaders who will, with the assistance of the project staff, conduct the academic-year seminar for their colleagues. Thirty teachers from schools near Boston, as well as thirty other teachers from three more distant districts, will be involved in the second cycle. The participating school districts are contributing as cost-sharing an amount equal to 7% of the NSF award.